Presidential Young Investigator Award

The research will focus on modeling and computer simulation of cardiac action potentials, automatic detection of cardiac arrhythmia with automatic defibrillation when required, packaging for ECG monitors, and pacemakers and defibrillators on a VLSI chip for long-term implantation within the body.